CEDAR Optical Facility at Millstone Hill

With this proposal Dr. Foster of MIT/Haystack Observatory seeks funds for a modest permanent CEDAR optical observatory on MIT property near the Millstone Hill radar facility. At present, CEDAR optical instruments and visitors are housed at several separate locations on space available basis. The new site would provide a better optical horizon than any of the existing locations and consolidate instrumentation and facilitate access to CEDAR investigators.*** //